Support for NSF/Europe Operation; Paris, France

This Interagency Agreement between the National Science Foundation and the Department of State supports the NSF/Europe office. Operating funds are provided by the Department of State and reimbursed by the NSF for salaries and benefits for the Head of the office and a secretary, their housing, educational allowances, etc. The NSF/Europe office serves as an important link between the American scientific community and the European scientific community through the dissemination of technical information, the development of ad hoc reports, and interaction with international organizations (NATO, OECD, UNESCO, the European Science Foundation, etc.). This office provides an excellent opportunity for U.S. science to keep abreast of changes and advances in European S&T activities and the status of European science. NSF/Europe facilitates the Foundation's ability to access and maintain liaison with European centers of excellence and to target the activities conducted under INT's bilateral programs.